Dynamic Mathematics Visualization for Young Learners: Sketchpad in Grades 3 to 8 -- A Conference Grant

This proposal is for a conference to bring together researchers, curriculum developers, teachers and educational technologists interested in developing the potential for broad impact of dynamic geometry visualization technology in elementary and middle school mathematics classrooms. The results of the conference will be disseminated through the publication and distribution of its proceedings, in printed, CD-ROM and Web format.